Stochastic Escape In and Out of Equilibrium: Methods and Applications

This proposal is for the support of work to study a broad class of stochastic processes,
both classical and quantum, involving noise-induced escape from the basin of attraction
of a locally stable state. The proposed research involves the development of new
mathematical techniques for analyzing these processes, and their application to a
variety of open problems in condensed matter and nuclear physics associated with
nucleation processes in systems both at and away from equilibrium.
Intellectual merit of proposed activity. The choice of research projects described herein
is guided by three objectives. They are: development of techniques that broaden the
variety of systems and situations accessible to theoretical analysis; application of these
techniques to the solution of open problems in physical systems; and testing, both
experimentally and numerically, of the resulting predictions. The overall research
program aims towards a significant advance in our understanding of nonlinear
dynamical systems perturbed by weak noise, a class of systems that cuts across many
scientific disciplines.
Broader impact of proposed activity. Mathematical methods developed by the PI and
collaborators will be applied to a broad range of systems that, put together, are of
fundamental scientific importance in a variety of scientific fields, and at the same time
have promising future technological applications. These include magnetization reversal
in nanomagnets, stability and lifetimes of monovalent metallic nanowires, decay of
high-angular momentum superdeformed nuclear states, the thermal activation$quantum
tunneling transition, and electroconvective pattern formation in liquid crystals. These
problems are accessible through a unified mathematical approach resulting from the
work of PI and collaborators. Training will be provided to postdoctoral researchers,
graduate students, and, if possible, undergraduate students from diverse backgrounds.
For example, the proposal includes an experimental/numerical/theoretical collaboration
in the study of thermally induced magnetization reversal in submicron-scale
ferromagnetic annuli. The experiment, already in its initial stages, is designed to test
theoretical predictions of the PI and others, and is largely being carried out by a
graduate student towards a Ph.D. thesis. There should also be several resulting
outreach activities, including presentations to classes at local K-12 schools, science
projects for NYC high school students participating in science competitions for
scholarships, and lectures to graduate students in other fields at multidisciplinary
summer schools. Finally, the applicability of the PI’s work to areas of potential
technological importance has already led to one patent application, and is likely to lead
to more.
NATIONAL SCIENCE FOUNDATION
Diary Note
Proposal:0651077 PI Name:Stein, Daniel
Printed